A Computer Facility for Real-Time Control Studies

A microVAX-II computer is acquired from Digital Equipment Corporation for real-time control studies. Initially, the equipment will be used to study control of decentralized systems, locomotion and robotics studies, and applications in transportation research.